Frequency Domain Design

The aim of this research is to develop a frequency domain design theory applicable to arbitrary linear feedback systems. The approach is based on three tools developed over the past half-dozen years: the Youla parameterization, the Arveson frequency response, and the extended Hermann-Martin model; and will include investigations of the simultaneous stabilization problem, the minimal degree compensator problem, the pole placement problem, and the initial value problem in single variate, multivariate, and general linear systems settings.